A Novel Computational Method for Diffuse Interface Models of Implicit Solvation of Biomolecules

In the past two decades, implicit solvent models are of tremendous importance to the biomolecular
modeling community with thousands of exemplary applications in the literature due to their low
computational cost and relatively high accuracy. The accuracy of implicit solvent models depends
on the geometric description of the solute-solvent interface and the solvent dielectric profile that
is defined near the molecules. Successful implementations of the proposed model in this project with
realistically generated solute-solvent smooth boundaries will greatly improve the accuracy and
efficiency of these implicit solvent models. This investigation will be directly integrated into existing
implicit solvent software and visualization packages to ensure extensive usages by an established
user community of researchers in chemistry, physics, and biology. Moreover, the proposed work will present
an unconventional computational method for diffuse interface models applied to spatial multiscale modeling
in mathematical biology. Successful development of the proposed work will become a valuable computational
tool for studying the transition between regions described by discrete and continuum models.
The outcome will have potential impacts across a wide range of scientific fields such as multiscale
modeling in cancer research and drug design.

The goal of this project is to develop a novel computational method for diffuse interface models of
implicit solvation of biomolecules. The computational approach will be mathematically rigorous and
computationally efficient to generate physically realistic solute-solvent smooth boundaries by free
energy minimization. To this end, an innovative construction is proposed to transform a variational
problem subject to bounded admissible functions into an equivalent unconstrained problem so
that the traditional Euler-Lagrange Equation can be applied directly. This new computational
formulation will be implemented with advanced computational algorithms to ensure their accuracy,
stability, and efficiency, and it will be validated by several common biomolecular modeling tasks.